Postdoctoral Research Fellowships in Chemistry

Dr. Silvia Lopez has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Lopez's doctoral degree was from Cornell University under the supervision of Professor Hector Abruna. Dr. Lopez intends to continue research at the University of Minnesota under the sponsorship of Professor Henry S. White. Dr. Lopez's area of postdoctoral research will be studies of the dynamics of electrocrystallization of low dimensional solids. By carefully controlling electrode potentials, Dr. Lopez will be able to monitor crystallization of specific phases by scanning tunneling microscopy. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.